A Universal Testing Machine for an Undergraduate Civil Engineering and Materials Engineering Laboratory.

This project is to introduce a modern, computer-controlled universal testing machine into the undergraduate civil engineering and materials engineering laboratory. By using the computer-controlled machine, the student will be able to run many similar experiments, thus demonstrating the randomness of data and the requirement for statistical analysis. Computer analysis will also allow the student to observe and produce many different types of data presentation.